Acquisition of a High-End/Visualization Computing Facility

A high end computing and scientific visualization facility will be acquired with Academic Research Infrastructure Program funds to support a broad spectrum of research and research training initiatives in science and engineering. The facility will contain an eight-processor Silicon Graphics Power Challenge XL server with 1 GB of memory, a 20 GB internal disk, a tape /CD-ROM jukebox and 4 high end Silicon Graphics workstations. The satellite visualization clusters will be located in the College of Engineering and College of Arts and Sciences. The Power Challenge XL will be the principal cycle server for large scale simulations and parallel algorithm development and can be upgraded to 16 processors in the future. The three main areas of research include: 1) the modeling of advanced materials including the growth, structure, and dynamics of polymer blends, metal surfaces, intermetallics, alloys and disordered magnets; 2) the reaction dynamics of atomic and molecular systems including electonic processes in the collisions of atoms with electrons and ions, photoprocesses in atoms, and gas-phase reaction dynamics and molecular spectroscopy; 3) computational fluid dynamics involving turbulent reactive flows typical of those involved in the manufacturing of various materials. A state-of-the-art eight-processor computer with four workstations will be acquired for a new computing facility, which will feature three satellite visualization clusters. The facility will be used primarily by faculty in the Departments of Physics and Chemistry and by faculty in the College of Engineering. The research will focus on modeling of advanced materials, reaction dynamics of atomic and molecular systems and computational fluid dynamics.